Upgrade to Geophysical Computing at the University of Texas at El Paso

0112116
Miller

This grant supports an upgrade to the seismological computing capability and enhancements to our ability to process and interpret environmental geophysical data at the University of Texas at El Paso. The equipment will be used primarily to interrogate huge volumes of seismic data from refraction and reflection data sets and to run seismic tomography and waveform modeling codes including full waveform finite difference simulations. To accommodate these needs we will use grant funds to purchase a multi-CPU Unix server with enough computing capacity for these tasks, as well as two PCs that will be dedicated to environmental geophysics projects. The new computers will replace outdated equipment. These computing facilities will support the research of PI, Kate Miller, and Co-Pis, G. Randy Keller, Diane Doser, Steve Harder, and ca. 20 graduate and undergraduate students.
***